Community College Science Connections

Community College Science Connection Conference The Community-Senior College Science Connections conference will enhance collaboration and articulation between community colleges and senior colleges in science and mathematics education and teacher preparation. The conference seeks enhanced partnerships in science and mathematics education at the undergraduate level and improved student awareness of science and mathematics teaching as a career. The workshop will focus on communication and cooperative interaction between 2- and 4-year institutions in science and mathematics education and teacher preparation; improved science and mathematics instruction in introductory science and mathematics courses; baseline information on partnerships to share as a vital career choice, and will generate regional groups to work for systemic impact. The workshop will result in a report of partnerships and a proceedings of the conference and the establishment of an Inernet home page for Community-Senior College Science Connections information.